Ethical Practices for Documenting Alaska Native Cultures: A Workshop At the 2001 American Folklore Society Meeting to be held October 17-21, 2001 in Anchorage, Alaska

ABSTRACT

The Alaska Native Science Commission will conduct a workshop on "Ethical Practices for Documenting Alaska Native Cultures" in Anchorage, October 2001. The workshop will include Alaska Native tradition bearers and researchers who will discuss their experiences working on collaborative cultural documentation projects. Panelists will address the topics of intellectual property, the nature of local knowledge, and the ethics of collaborative research. The workshop will allow others to learn from Alaska Natives' experiences with collaborative research projects.